Workshops in Geometric Topology

Abstract

Award: DMS-0407583
Principal Investigator: Craig R. Guilbault, Fredric D. Ancel,
Dennis J. Garrity, Frederick Tinsley, Gerard A. Venema

This award provides partial support for active research
mathematicians and graduate students participating in three
meetings in an ongoing series of workshops on geometric topology.
The 2004 workshop will be held in Milwaukee, Wisconsin at the
University of Wisconsin - Milwaukee, with Peter Teichner of the
University of California, San Diego as principal speaker. The
2005 workshop will be take place at Colorado College in Colorado
Springs, Colorado and the 2006 meeting will be hosted by Oregon
State University in Corvallis, Oregon.
These workshops are designed to focus on recent work, reported by
one of its leading investigators, and to provide a serious but
informal research atmosphere in which graduate students can meet
and learn from others in geometric topology.

An additional component of this award supports work to edit,
type, and distribute several unpublished works of longtime
workshop participant Bob Edwards. These important contributions
to topology include seminal work on double suspensions of
homology spheres and approximations of cell-like maps by
homeomorphisms, and will be posted on the workshop Web pages as a
step toward more formal publication.